Acquisition of Equipment for Earth Science Projects

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Saginaw Valley State University will acquire a liquid chromatograph with mass spectrometric detection. The research to be carried out using this instrument will define and follow the health of the Saginaw Bay Watershed in response to an EPA Superfund cleanup of a toxic waste site on the Pine River. The scientific objectives to be addressed include a) measurement of toxics in the sediment and water column; b) bioaccumulation of pollutants; c) impact of the pollutants on genetic diversity; d) methods for remediation; and e) methods for characterization of types of microorganisms. Students from this primarily undergraduate institution will be heavily involved in the research effort.

Liquid chromatography with mass spectrometric detection (LC-MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research within the Earth Sciences discipline at Saginaw Valley State University.